NER: Engineering of InAs Quantum Dot Ensembles Using Interference of Optical Surface Waves

Engineering of InAs Quantum Dot Ensembles Using Interference of Optical
Surface Waves

This project addresses the problem of inhomogeneous broadening of the size
distribution of quantum dot (QD) epitaxial semiconductor ensembles formed
via a stress-driven Volmer-Weber or Stranski-Krastanov growth mechanism. The
uniformity and narrow size distribution of the QDs are the major challenges
for the utilization of QD structures in optoelectronic devices. The primary
goal of this proposal is to evaluate the feasibility of nanoscale control of
the nucleation process of InAs QDs on a GaAs surface using the interference
of the optical surface waves. The interference pattern will be generated on
the surface of the substrate using a pulsed UV laser during the growth of
QDs by molecular beam epitaxy (MBE). The pattern, with a typical period of
few hundred nm, will be created using two different optical schemes based
on: (i) the interference of the incident wave with the scattered coherent
surface wave; and (ii) the interference of the incident waves with two
surface waves coupled to the split laser beams. The optical interference
pattern will modulate periodically the surface properties of the substrate
at 100-200 nm level. The nucleation of QDs will be controlled through either
substrate temperature modulation, thereby destroying the nucleation clusters
in the antinode of the standing wave pattern, or through undulation of the
surface by laser ablation to control the surface energy. The 100-nm
modulation scale is expected to form a template for initial QD nucleation,
and the subsequent evolution of the QD ensemble will be driven
thermodynamically towards higher density of dots, (3-10)e10 cm-2. The
important features of the in-situ optical impact are that it does not leave
any residues on the surface, can be conducted during the growth process, and
can be adjusted to introduce the minimum defect density.
We will systematically investigate the factors (growth temperature, As flux,
growth rate, laser power, etc.) that provide uniform and narrow QD
distribution and efficient luminescence. The samples grown using optically
controlled nucleation will be studied by the in-situ RHEED, as well as STM,
TEM and photoluminescence methods to reveal the correlations between growth
parameters, and the structure and properties of the QD systems. The
laboratories at the Institute have all the necessary equipment for the QD
characterization. This includes state-of-the-art field-emission ultra-high
resolution TEM, focused ion beam station, surface analysis tools, five STM
tools configured for different imaging modes and environment including
ultra-high vacuum, and unique ultrasonic force microscope.
The successful completion of the proposed work would have a significant
impact on the performance of various optoelectronic components. The method
will allow the growth of QD structures with sharp size distribution and high
radiative recombination efficiency. For example, the QD structures will be
used as active media for laser diodes with superior performance
characteristics, such as higher efficiency, higher thermal stability, higher
modulation frequency and increased reliability.